Cage Effects on Electron and Proton Transfer Reactions

In this RUI project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Dwyer of SUNY Brockport and Doetschman of SUNY Binghamton will use pulsed electron paramagnetic resonance (EPR) techniques to examine electron- and proton-transfer reactions in zeolites. Differences between reaction in the solvent and in the zeolite microreactor will be explained in terms of reagent-environment interactions. In this project molecular interactions with solid-state cage cations and Lewis acid sites will be examined to determine their effect on the nature and temperature dependence of molecular motion. Experimental work will be performed using the regional pulsed EPR and photochemistry facility at SUNY Binghamton. Zeolites are inorganic materials with unique internal structures which can act as reaction solvent cages, or microreactors for short. These materials have industrial as well as academic application as hosts for novel light-induced reactions. In this project undergraduate students from Brockport will be able to study these sorts of reactions using state-of-the-art equipment in Binghamton that is not normally available at undergraduate institutions.